SGER: Feasibility Study for Automated Scanning Particle Size Distributions in Cataclastic Rocks

9727453 Cashman This is a feasibility study to determine if particle size distribution in cataclastic rocks case be determined by automated scanning techniques. If successful, large numbers of crushed grains in fault rocks can be measured, and criteria developed to help isolate mechanisms of faulting and several important fault parameters.